Dynamics of Lamellipodia of Migrating Cells

Mogilner
The investigator develops deterministic and stochastic
two-dimensional computational models of the lamellipodia of fish
keratocyte, fibroblast and nematode sperm cells. He derives and
analyzes model equations for (i) protrusion of the leading edge,
(ii) contraction of the lamellipodial cytoskeleton, and (iii)
turnover and regulation of the lamellipodial cytoskeleton. The
equations are integrated into the realistic two-dimensional model
of the lamellipod. Simulations of the model equations on a free
boundary domain produce maps of movements, forces and shapes that
are compared with available experimental data to validate the
models.
The investigator uses a novel combination of mathematical
analysis and computer simulations to develop explanatory and
predictive models of migrating cells. Cell migration is
fundamentally important in morphogenesis, wound healing, and
cancer. It is based on a complex self-organized mechanochemical
machine. Some relevant velocities, forces, rates and
concentrations have been measured, but minute details of
integration of forces, movements and chemical reactions into the
cell migration are unclear. The investigator's goal is to
understand quantitatively the molecular basis of cell movements.
The models allow testing plausible scenarios of cell movements.
They provide a new interdisciplinary level of understanding cell
movements and new methods of predicting cell behavior in
important medical and technological situations such as cell
division, chemotaxis, phagocytosis, and wound healing. Students
and postdoctoral researchers are involved in the project,
enhancing the development of a trained workforce at the critical
intersection of mathematics and biology.